NER: NanoCAD - Computer-Aided Design Algorithms and Tools for Nanotechnologies

Proposal No: 303789
Title: NER: NanoCAD - Computer-Aided Design Algorithms and Tools for
Nanotechnologies

There has been a huge surge of research activity in recent years in the area
of nanoelectronic device design and fabrication. Such ``nanodevices''
include solid-state quantum-effect devices and molecular devices.
In terms of work at the logic and architecture levels, quantum cellular
automata (QCA) based on quantum dot cells, and resonant tunelling diode
(RTD) based implementations seem ahead of others, and chips based on
these devices are likely to be feasible within this decade. While working
devices and logic gates, and even some small circuits, have been
demonstrated for various nanotechnologies, no logic synthesis methodology
has evolved yet for automatically synthesizing large logic circuits in these
technologies. The aim of this proposal is to develop automatic logic
synthesis algorithms and implement them as software tools to bridge this
gap. In this exploratory phase of research, we will target QCA and RTD
based logic circuits.

Specifically, we will develop a general multi-level logic synthesis
algorithm and software tool using threshold gates and majority gates
as primitive gates. We will derive bit-level pipelined versions
of different arithmetic units to exploit the concept of nanopipelining.
We will also derive physical synthesis rules for QCA to ensure its correct
functionality.

The software tools developed in this research will be made available on the
world-wide web for wide dissemination. The material will be included in
a new graduate-level course on Computer-Aided Design for Emerging
Nanotechnologies. Undergraduates will also be involved in this research.
Princeton encourages applications from women and minority students through
special fellowships. Such students will be specially welcome to join this
research.